Aluminum Nitride/Epoxy Composite for Very High Thermal Conductivity

An Experimental Program is proposed to investigate thermal conductivity of highly loaded AlN/epoxy composite as a function of processing variables. AlN has been chosen as a filler material because of its very high thermal conductivity as well as its capability to deform plastically under stress and epoxy resin matrix because of its high adhesive strength for strong bonding of AlN filler particles. AlN/epoxy composite will be tape cast and treated thermomechanically for very high thermal conductivity. During the thermomechanical treatments coarse AlN filler particles will be squeezed together to achieve large contact areas and very thin interfacial layers which are essential for composite bodies with very high thermal conductivity,